Mathematical Sciences: Environmetrics 87

Environmetrics 87, is a research conference for environmetricians, planned for November of 1987. This meeting will follow in the spirit of the conference sponsored and supported by the EPA, "Environmental Modeling and Simulation" held in 1976 in Cincinnati, Ohio and Environmetrics 81 sponsored by EPA, SIAM, and SIMS and supported by the EPA in Alexandria, Virginia in 1981. Featured in the three day program of Environmetrics 87 will be contributed research papers over a wide variety of topics in environmental quality. Primary sponsors for Environmetrics 87 are the American Statistical Association and SIAM's Institute for Mathematics and Society.